International Symposium on Fracture and Damage of Concrete Structures and Size Effect

This project provides funds for the partial support of an International Symposium on Fracture and Damage of Concrete Structures and Size Effect to be held at Northwestern University. There are a number of groups who are revising design codes by considering the use of fracture mechanics to evaluate concrete failure. Therefore this is an appropriate time to hold such a meeting.